The Topology of Smooth 4- -manifolds, with Applications to the Topology of Symplectic 4- -Manifolds

In this proposal Baldridge investigates the topology of smooth
4-manifolds using gauge theory techniques. The goals of the
proposer are to find easier ways to calculate the Seiberg-Witten
invariants of 4-manifolds, to provide new examples of symplectic
4-manifolds, and to better understand the topology of 4-manifolds
which admit a circle action and symplectic form. The first project
involves studying the moduli space of solutions to the
Seiberg-Witten equations of a smooth 4-manifold when the Dirac
operator is conjugated by the exponential of a Morse function. In
a collaborative project with Li, the proposer also plans to extend the
geography problem for symplectic 4-manifolds to nonsimply
connected manifolds and fill out this geography for symplectic
manifolds with Kodaira dimension 1. In the third and fourth
projects the proposer explores ideas related to Taubes's question,
that is: If a 4-manifold is symplectic and diffeomorphic to the
product of a three manifold with a circle, does that three manifold
fiber over a circle?

A 3-manifold is a space that locally looks like the familiar space
we live in. If one imagines replacing every point in the
3-manifold with a circle of points in a nice way, one gets an
example of a 4-manifold with a circle action. Here `action' means
a rotation of the space along each circle. Four manifolds with
circle actions have many nice periodic and symmetry properties,
which makes them particularly suitable for modeling and testing
physical theories. (For example, the space-time universe we live
in is an example of a general 4-manifold which may have a circle
action.) These manifolds are especially useful for modeling if
they also have a symplectic structure --- a key ingredient in
almost all the equations of classical and quantum physics. Work
in this proposal investigates what shapes symplectic 4-manifolds
with circle actions can have, and the shapes of 4-manifolds in
general. This is done by relating invariant features of a
4-manifold to the number of solutions of certain systems of
nonlinear partial differential equations on that manifold.